Faculty Awards for Women

Research is the field of power system modeling and simulation with particular emphasis on steady-state and transient conditions, including system frequency dependence and unbalanced conditions. Three projects will be pursued. 1) Development of new methods and techniques for the measurements, control, and design of distribution power systems in the presence of harmonics and distortion. This project was started by building a three-phase harmonic generator and then investigating the measurement errors in the induction and solid-state watt hour meters in the presence of harmonics. The experimental results were compared with the theoretical results in the induction watt hour meter. 2) Develop a microprocessor-based technique to detect and locate high- impedance faults in power systems which can cause damage by fire or personal injury by contact with an energized conductor. This project is started by developing a proper fault model and a measurement scheme for on-line tracking of voltages and currents during such a fault. 3) Development of new techniques for optimal design of harmonic filters for power systems (transmission and distribution). The objective of these techniques are to minimize harmonic distortion, to allow power factor improvement and to improve voltage regulation. This project has been started by studying and reviewing different types of filters and their applications.